Construction of a Complete Map of the Arabidopsis Genome

9406943 Ecker, Joseph The goal of this research is to construct the physical map of the genome of Arabidopsis Thaliana. Arabidopsis has become the best studied reference flowering plant due to its unique features such as a small genome of about 100 Mbp, a low amount of dispersed repetitive DNA, and a large amount of accumulated genetic data. A Powerful method of furthering our understanding of the genetics and molecular biology of an organism is the construction of a physical map of its genome. The unique features of the Arabidopsis system makes the prospects of construction of a physical map and sequencing of the entire genome particularly promising. Specifically, Dr. Ecker plans to map the genome of Arabidopsis by sequence tagged site (STS) content mapping of yeast artificial chromosome (YAC) clones with higher informative simple sequence length polymorphism markers. The objectives include (1) the identification of a large number of simple sequence repeats spread throughout the genome which will form the framework genetic map, and (2) construction of the physical map of the genome by STS content mapping of YACs using these markers. Dr. Ecker plans to share his data by releasing genetic and physical mapping information, DNA sequence information and biological materials on a monthly basis. All DNA sequence data will be submitted to the STS database at the National Center of Biotechnology Information. All biological materials generated from this projects will be distributed through the Arabidopsis Biological Resource Center at Ohio State University. ***